Information Engineering Technology Program

The Dine College IETP program is designed to prepare students to enter the high-tech work force addressing the need on the Navajo Nation for computer technicians and network specialists. Close collaborations with existing ATE programs ensure that Dine College faculty and support personnel have the skills necessary to offer training consist with national skills standards. IETP students have the option of either achieving vendor specific certification to enter the high-tech work force or continuing with a four-year engineering program. Partnerships with Navajo Nation programs, Arizona and New Mexico school districts, and regional high-tech industry guarantee that the course content remains sensitive to regional employers and that the program remains consistent with and linked to other regional initiatives.